Connecticut Calculus Consortium

A group of 18 institutions is working together to introduce students to realistic problems and to the technology (graphing calculators and microcomputers) that is capable of dealing with them. Existing materials are being adapted and will be implemented on a state-wide basis. The laboratory materials developed at the University Hartford and the text materials being developed by the Core Calculus Consortium (lead by Harvard University) are being integrated into the new course.